Analysis and Synthesis of Reinforced Soil Structures, and Collapse Patterns of Reinforced Soil

9301494 Michalowski The objectives of this research are: 1. to improve understanding of soil-reinforcement interaction, and 2. develop an analysis and design method for reinforced earth structures, applicable to traditional reinforcement (long metal bars, large blankets of synthetic fabric or geogrid), short fiber reinforcement, continuous filament reinforcement, and reinforcement resisting bending and shear (such as soil nails). The admissible failure modes of the reinforced soil mass will be considered within an energy-based approach, and the presence of reinforcement will be included as additional terms in the energy balance equation due to the energy dissipation within the reinforcing elements. Tensile failure of reinforcement, collapse associated with bending or shear, and reinforcement slip, and yield criteria for randomly reinforced soil will be derived. *** ~ ~ME143D TMP } ~ME143D TXT } ~ME3511 TMP =~ ~ME0C2D TMP } 9301494 Michalowski The objectives of this research are: 1. to improve understanding of soil-reinforcement interaction, and ! ! ! F v v ; Times New Roman Symbol & Arial Tms Rmn " Helv M M h L % L % % jina reed jina reed